ITR: Electronic Excitation of Alkali-Atom Doped Helium Clusters

Research is proposed on 1) visualization of the diffusion monte carlo algorithm as it is applied to He clusters and 2) calculations of the excited electronic states of He clusters using a new monte carlo development. The calculations will be treating many-body systems of up to 300 degress of freedom and will examine the computational issues associated with parallelization of the needed algorithm.